Snow-Atmosphere Transfer Function for Reversibly Deposited Chemical Species in West Antarctica

This award is for support for a program of measurements to improve our understanding of the relationship between formaldehyde (HCHO) and hydrogen peroxide (H2O2) in the atmosphere and the concentrations of the same species in Antarctic snow, firn and ice. This work aims to relate changes in concentrations in the snow, firn and ice to corresponding changes in tropospheric chemistry. Atmospheric and firn sampling for formaldehyde and hydrogen peroxide at one or more of the WAIS ice core drilling sites will be undertaken and controlled laboratory studies to estimate thermodynamic and rate parameters will be performed. In addition, this work will involve modeling of atmosphere-snow exchange processes to infer the "transfer function" for reactive species at the sites and atmospheric photochemical modeling to relate changes in concentrations of formaldehyde and hydrogen peroxide in snow, firn and ice to atmospheric oxidation capacity. This work will contribute to a better understanding of the relationship between atmospheric concentrations of various species and those same species measured in snow and ice samples.